Young Scholars Program at the University of Northern Iowa -- EARLY ALERT

The University of Northern Iowa will initiate a three-week, commuter, Early Alert Initiative Young Scholars project in Mathematics and Physics for 24 students entering grades 7,8. This project emphasizes research participation in the study of energy transer, light, sound, probability, and statistics. Students conduct investigations and design experiments. There also are opportunities for students to engage in career exploration activities through interactions with scientists.